Optical Systems For Materials and Communication Research

Current research is being performed in the Optics and Material Science (OMS) Lab at New Mexico State University in several areas of technical importance. Among the several projects currently underway and being proposed for the future, two specific areas are being currently emphasized. These areas are: a) optical communications and b) optical methods in material evaluation. New and exciting methods for communications, ultrastable solid state lasers and infrared imaging are currently being explored for which the proposed optical systems can greatly enhance the opportunities for success. A new ultra-high noise rejection high efficiency quantum filter, which holds the record for the narrowest bandwidth wide field-of-view operation, is under development in the OMS Lab. The device is well suited to optical communication applications where a weak narrow-bandwidth signals are buried in strong non-resonant noise. Pulsed optical systems of high quality and the associated equipment will be put to good use in the further development of the filter. Fast and accurate testing of materials and material processing is also an area being studied in detail. The OMS Lab is studying new techniques for the analysis of materials and the complex structures which embody the materials. Infrared and laser optical systems will be used to study the failure of airframe structures and highway bridges. Each of these areas are critical to several industries in the U.S. Further development and transfer of technology in these areas to industry will help to strengthen the industrial base in the U.S.